An In-Situ Study of Carbonate Mineral Solubility in the Upper Ocean

9618327 Li For global climate models to accurately predict future climate a detailed knowledge of carbon cycling through through the oceans must be achieved. This study will investigate the causes for the elevated supersaturation of the surface oceans with respect to carbonate minerals and carbonate dissolution at shallow to mid-depths as a sink for anthropogenic CO2. The composition of a film which forms on calcite samples in the surface oceans will be investigated. This film is believed to be responsible for the supersaturated state of the surface ocean, however, its composition is still a matter of controversy. In laboratory experiments, carbonate surfaces will be scanned while submerged in synthetic and natural seawater solutions of varying composition, via atomic force microscopy (AFM), the formation of films can be observed in quasi-real time. The acquired surface morphology of these samples can then be compared to the acquired surface morphologies of samples deployed in the upper ocean. In order to determine acquired surface composition, samples generated at sea and in the laboratory will be subjected to X-ray Florescence Spectroscopy (XFS) and include low grazing angles. In the early stage of this project, abiotic aragonite, Mg-calcite and calcite samples will be deployed in a depth profile at station ALOHA in conjunction with the JGOFS Hawaii Ocean Time-series project. Also, natural assemblages of coccolith tests, foram shells and pteropod shells will be deployed in a depth profile at station ALOHA in conjunction with the JGOFS Bermuda Biological Research station in the North Atlantic. Relevant parameters of the CO2 system are measured as part of HOT and BAT with a great deal of precision and accuracy. This data will allow for the evaluation of experimental measurements along side thermodynamic predictions. Future projects will then take on a global prospective with the aid of other JGOFS research groups around the world. A fter obtaining measurements in all of the oceans an assessment of shallow carbonate dissolution as a sink for atmospheric CO2 can be attempted. ***